Twenty Fourth Symposium (International) on Combustion

The Combustion Institute holds biennial international meetings for presentation of the latest experimental and theoretical research results across the spectrum of Combustion Science and Engineering. The 1992 meeting will be held in July, 1992 in Sydney, Australia. It is expected to draw approximately 1200 participants and results in roughly 250 carefully screened invited review and original papers. Funds are being supplied to help offset the costs of publishing the bound meeting proceedings.